Development of Cooperative Action Among Seltaman Children

9421235 The major objective of this project is to test, by means of a cross-cultural comparison, a proposed pathway for how young children achieve the basic skills required for generating sustained cooperative action with others (e.g., games, conversations, working together on a common task). The proposed pathway, based on prior work with children developing within contemporary USA culture, will be tested through study of children developing within Seltaman culture, a recently tribal people of Papua New Guinea. Three features of this pathway are expected to be conserved despite such a major change in the cultural context for human development--the emergence of a new readiness to imitate others' nonverbal actions around two years of age (the imitative pattern), the role of the imitative pattern in generating sustained bouts of nonverbal cooperative action before children have sufficient verbal skills to generate cooperative action, and the role of these bouts of nonverbal cooperative action in facilitating children's development of verbal means for facilitating cooperative action. To test these expectations, Seltaman children between 1 and 5 years of age will be videotaped weekly across a six-month period as they interact with other children in the normally-occurring activities of their village. The developmental course of nonverbal imitative acts, the extent to which nonverbal imitative acts account for all instances of cooperative acts, the use of imitative acts in generating sustained bouts of cooperative activity, and the selective occurrence of verbal means of facilitating cooperative action within sustained bouts of nonverbal cooperative action will be assessed through analysis of the resulting videotapes and the transcriptions provided by villagers. These findings will be integrated with those resulting from a broader-scope companion project of young Seltaman children's social relationships to assess the reasons for any commonalities and differences t hat exist between USA and Seltaman culture in the developmental pathway toward the mastery of cooperative action. This project employs a cross-cultural comparison to test a proposed developmental pathway for how young children achieve the basic skills required for generating sustained cooperative action with others (e.g, games, conversations, working together on a co task). The proposed pathway, based on prior work with young children developing within contemporary USA culture, will be tested through the study of children developing within Seltaman culture, a recently tribal people of Papua New Guinea. Because the Seltaman culture differs from U.S. culture on a number of dimensions that might influence the emergence of early cooparative interactions, these data qwill provide a significant step toward testing the universality of the devleopmental pathway documented in past research. Three features of this pathway are expected to be conserved despite such a drastic change in the cultural context for development: (1) the emergence around two years of age of a new readiness to imitate others' nonverbal actions (the imitative pattern); (2) the role of the imitative pattern in enabling young children to first generate a wide variety of new patterns of sustained cooperative action, before they have the verbal means to do so, and (3) the role of these sustained bouts of nonverbal cooperative actions in facilitating the child's development of verbal means of achieving cooperative action. This cross-cultural comparison addresses both key theoretical issues (e.g., how conservatism and variability coexist in paths of human development) and important practical issues (e.g., revealing how to provide experiences that facilitate young children's cooperation; filling the need for cross-culturally validated answers to developmental questions pressing upon educators and child care providers who work with groups of children that are increasingly culturally diverse.)